REU Site Award: Heterogenity at Different Levels in AquaticPopulations

This award provides funds to the Department of Biology at Luther College to establish an REU Site where eight undergraduate science majors will study heterogeneity in aquatic populations using the theories and techniques of both ecology and molecular genetics. This integrated approach is designed to maximize the potential for learning by both the student and faculty participants. The students and faculty will carry out field and laboratory experiments aimed at comparing and contrasting populations of the pulmonate snail Physa integra and the caddisfly Hydropsyche orris from environmentally distinct habitats. The bulk of the program will take place during a nine-week summer session. Bi-weekly group meetings will consist of faculty and student research reports and discussions of relevant journal articles. The participants will be required to present the results of their summers' research at their home institution and at appropriate scientific meetings.